Workshop on Research & Development (R&D) Opportunities in Federal Information Services

9703892 Schorr This grant for $78,150 to the Information Science Institute of the University of Southern California will fund a workshop on research and development opportunities in Federal Information services. Three meetings will be held, resulting in a workshop report which should be of great value to individual federal agencies, both research and mission, and also to cross-agency planning and budgeting organizations such as the Office of Management and Budget and the President's Government Information Technology Service Board.